Minority Graduate Assistantship in Chemistry--Annia I. Ruiz

Annia I. Ruiz has been awarded a Minority Graduate Assistantship in Chemistry. Ms. Ruiz's baccalaureate degree was from the Cayey University C-U, Puerto Rico with a major in chemistry. She is pursuing a Ph.D. at the Georgia Institute of Technology in the area of Analytical Chemistry; Professor Robert A. Pierotti is serving as her advisor. The Minority Graduate Assistantships in Chemistry are viewed as an important infrastructural investment designed to broaden the participation, knowledge and experience of minorities and attract them into meaningful careers in chemical research and teaching.